Workshop on Scientific Computing Performance Analysis, Boulder, CO, August 29-31, 1989

This project supports a "Workshop on Scientific Computing Performance Analysis" to be held at the National Center for Atmospheric Research in Boulder, CO, on August 29-31, 1989. Attendees will come from academia/industry, the national laboratories and the national supercomputer centers. The workshop will concentrate on identifying areas of research opportunity related to performance analysis of high performance computing systems and scientific workload characterization. Research on these and related topics is seen as having significant value in enhancing the efficient use of current, conventional supercomputers and in establishing measures of assessing the potential of newer parallel architectures.